A Comprehensive Regional Network for American Indians in Science and Technology

This project develops and implements a comprehensive coordinate seven-state regional "network" to address the serious underrepresentation of American Indians in science and technology field. With these funds, the following activities will occur: sponsoring of regional workshops, implementation of summer enrichment programs; development of comprehensive science intervention programs; and establishment of an interactive regional communication network.//